Research Sample Profiling

In this SGER proposal, the investigators propose to do some extensive research profiling on education research projects supported by ROLE, EREC, and the REESE program. The objective is to examine the social knowledge networks of the projects, through their citation of other works, in an attempt to understand the social structure of the education research community.